RUI: Uncovering the Occurrence and Mechanism of Regulatory Phosphorylation of Non Photosynthetic Pyruvate,Orthophospate Dikinase in C3 Plants

The enzyme pyruvate,orthophosphate dikinase (PPDK) is most well known as
an enzyme of the C4 photosynthetic pathway where it catalyzes the
formation of PEP (phosphoenolpyruvate), the primary CO2 acceptor
molecule, from pyruvate. Because it is a key enzyme in the C4 pathway,
PPDK activity is highly regulated so the overall pathway can function
optimally in CO2 assimilation. This regulation is conferred by
reversible phosphorylation of a PPDK active-site threonine, with the
enzyme being inactive in the phosphorylated state. A single bifunctional
protein kinase/phosphatase enzyme, PPDK regulatory protein (RP),
catalyzes this regulatory phosphorylation and dephosphorylation. PPDK is
also present in C3 plants although it does not participate in
photosynthesis. Further, it is present in all tissues of the plant but
in very low amounts. Its function in C3 plants is essentially unknown,
although it is proposed to participate in cellular metabolism and
guard cell function. Recently, it was demonstrated that PPDK in leaves
of C3 plants undergoes light/dark mediated regulatory phosphorylation
similar to C4 leaf PPDK. The major aim of this project is to further
characterize C3 plant PPDK regulatory phosphorylation by identifying
organ, tissue, cellular, and subcellular sites of regulatory PPDK
phosphorylation. Further, the C3 RP or RP-like activity mediating
reversible phosphorylation of PPDK in C3 plant tissue will be
scrutinized in vitro for understanding its biochemical nature. Finally,
this project seeks to clone the gene for C4 PPDK RP from a maize cDNA
library. This will provide the "ultimate" tool for resolving the
perplexing riddle of how this uniquely bifunctional enzyme is regulated
in C4 plants, as well as the requisite gene probe for understanding its
precise expression in C3 and C4 plants. In summary, the experimental
outcomes of this project will enable the hitherto unknown metabolic
function(s) of PPDK in C3 plants to be elucidated.